Backward and Forward Information Flow in Networks

This research investigates the role of feedback in communication, the intrinsic loss of information in the joints of a communication network, and the use of quantum entanglement as a communication resource for the quantum multiple access channel.

Approaches to the unsolved problem of Gaussian feedback capacity (using convex duality, optimal filtering, and Schalkwijk-Kailath style feedback correction to obtain capacity) and to the Gaussian relay channel (using binning in an optimal way to make optimal use of the downlink capacity) are being pursued. Applications include sensor networks.